An Integrated Stress Analysis Laboratory for Undergraduate Students

An integrated stress analysis laboratory, mainly for senior undergraduates, which will let them perform various experiments using modern data acquisition equipment and techniques is developed and built. The scientific principles which will govern the proposed laboratory are rather simple; they are based on utilization of several well-developed techniques of experimental mechanics coupled with a digital image analysis system for optical data acquisition (photoelastic and moire fringes) and analog-to-digital convertor for electrical data acquisition (strain gauges, load cells, displacement sensors). The integrated approach (modern instrumentation and various experimental techniques together with available analytical or numerical solutions) will be an indispensable tool for the undergraduate student to really understand the value of the experiment and the need for critical analysis of results.